Maternal Manipulation of Sibling Aggression as a Possible Mechanism of Sex-Ratio Adjustment

9306912 Glickman Siblicide, the killing of one sibling by another, has been well studied in a number of bird species, but has only recently been described in a mammal. Integrating data from a long-term field study with observations made in a research colony, Dr. Laurence Frank has found that newborn spotted hyenas fight violently at birth, have an array of adaptations for winning the fight, and that one usually dies in the first weeks of life when both sibs are the same sex. This aggression is associated with massive prenatal exposure to androgens, which are presumably responsible for the unique syndrome of genital masculinization, enhanced aggressiveness, and dominance over males that characterizes the female spotted hyena. Reproductive records from a long-term field study show that female hyenas appear to adjust the sex ratio of their offspring according to their own social rank and current demographic conditions. Through intensive study of wild female hyenas and their offspring in the critical first month of life, Dr. Frank will test the hypothesis that female spotted hyenas are able to influence the outcome of neonatal aggression to concentrate parental investment in a singleton of the favored sex. Behavioral observations will commence at birth, and will include detailed observations of maternal behavior at the natal den and regular inspection of the den hole with a fiber-optic video camera to monitor number and condition of the young. To assess costs of offspring of both sexes, Dr. Frank will regularly assess dominance relations within the litter and weight gain by cubs. In addition, he will continue to maintain genealogical, demographic, and dominance records that date back to 1979. This research addresses basic questions in three fields of behavioral biology: sibling aggression and parent-offspring conflict, sex-ratio adjustment, and hormonal influences on aggression. Siblicide poses an array of questions that challenge our understanding of kin sele ction and the costs of reproduction. Under what circumstances is it evolutionarily advantageous for a young animal to kill its nearest relative? Does this behavior also benefit the parents' fitness, or does the surviving sibling benefit at the cost of both its dead sib and its parents? Should the primary hypothesis be proven, it will demonstrate that maternal behavior is capable of influencing the sex ratio of offspring after birth, and will lead to important questions about the cognitive processes involved, since the demonstrated pattern of adjustment apparently responds to changing ecological and social variables. This work is coordinated with a major study of hyena endocrinology and development in Berkeley, one goal of which is to identify the role of prenatal androgens in shaping neonatal aggression. Because humans produce the same hormones that appear to influence physical and behavioral development of the spotted hyena, insights into their role in hyena aggression may help focus questions about their role in human behavior.